Laser Spectroscopy Equipment for an Undergraduate Chemistry Laboratory

In this project the essential components of versatile laser spectrometer is assembled that enables our chemistry major to carry out experiments in Raman spectroscopy, time-resolved absorption spectroscopy, and time-resolved fluorescence spectroscopy. The total system includes both a pulsed nitrogen laser and a dye laser, as well as a monochromator, a signal processor, and a laboratory computer to store and analyze the data. The spectrometer is used to introduce students to several phenomena and techniques which are important to current research in chemistry. These include (a) principles and applications of lasers, (b) techniques for measuring very fast processes, and (c) computer interfacing and control of experiments. This also provides an opportunity for our chemistry majors to use state-of-the-art laser equipment for independent research projects. The institution is matching the NSF grant with an equal amount of funds.